Operator Theory and Inverse Problems

Operator Theory and Inverse Problems

Abstract

The proposed research will focus on a few inverse problems:
the uniqueness in the multivariable moment problem, the
best approximation of planar domains with finitely many prescribed
moments; the inverse spectral problem for the modulus of the
restriction operator between the Bergman spaces of two planar
domains; a renormalized Riesz transform with applications to
image reconstruction in any dimension. Methods of operator
theory, function theory and approximation theory will be combined
in this work.

In many areas of modern activity it is required to reconstruct
an entity from partial, and sometimes distant and indirect, data.
Inverse problems address such specific questions. The proposed
research will be concerned with a couple of inverse problems
arising for instance in tomography or in geophysics. To be
more specific, given a number of different angle X-rays of a body,
we will propose a constructive, optimal way of approximating, or
sometimes reconstructing this body.